Ship Operations - R/V Pelican

This award (OCE-1219704) will support two NSF funded sea-going programs by providing access to research vessel Pelican, operated by Louisiana Universities Marine Consortium (LUMCON). R/V Pelican as a designated UNOLS vessel adheres to all UNOLS safety standards, NSF inspections, and reporting requirements. Historically LUMCON has run an efficient and economical operation to support sea-going activities primarily in the Gulf of Mexico. This award represents the start of a new five-year cooperative agreement, and for each year of the cooperative agreement annual funding will be re-negotiated based upon the number of days at sea in direct support of NSF peer-reviewed research. This award is for platform support for NSF programs.